Neural Correlates of Olfactory Learning in Infant Rats

At present, it is unknown whether the neural circuitry which underlies learning in mature animals is the same as that which underlies learning in immature animals. However, it is clear that associative learning is possible in newborn rats prior to development or maturation of many structures and neurochemical systems known to be important for learning in the adult. Dr. Regina Sullivan intends to expand our knowledge in this important research area by assessing whether a specific neurotransmitter system, the norepinephrine system, may account for at least some of these differences in learning which occur during development. She will employ pharmacological, neurophysiological, and anatomical techniques to research this topic. This work is important as we attempt to understand the developmental aspects of learning.